Mathematical Sciences: Systems of Semilinear Partial Differential Equations

This project concerns the study of systems of semilinear partial differential equations. Questions of existence, uniqueness and continuous dependence upon parameters of solutions will be addressed. Also the qualitative behavior and variety of physical, chemical and biological areas. These include the theory of chemical reactors, population biology, semiconductor theory, fluid dynamics, combustion theory, neurobiology and aeronautical engineering.